RUI: Biological Rate Processes in the Subsurface ChlorophyllMaximum: A Chemotaxonomic Analysis

The subsurface chlorophyll maximum (SCM) is one the most widely recognized biological features in the ocean, however, a mechanistic understanding of the dynamics processes leading to its formation and maintenance has not been fully accepted. Under the common assumption that marine grazers are food-limited and that phytoplankton in the SCM are light-limited, one simple question has remained particularly puzzling - why isn't the SCM grazed away? Based on new results, we hypothesize that 1) growth and loss processes are not uniform among the algal taxa represented in the SCM, 2) some algal groups, small unicellular algae, are indeed better adapted to the low light conditions of the SCM than other algal taxa and 3) functional feeding responses of resident micrograzers operate to maintain the SCM as a persistent feature. The project initiates new taxon-specific experiments that focus on the dynamics of phytoplankton growth, herbivorous grazing and cell sinking in the SCM. Taxon-specific rates will be determined from corroborative methods which exploit algal pigments as chemotaxonomic markers. Our goal is to develop a taxon-specific understanding of rate processes that control the formation and maintenance of the oceanic SCM.